RI: Small: Collaborative Research: Word Sense and Multilingual Subjectivity Analysis

Approaches to subjectivity and sentiment analysis often rely on
manually or automatically constructed lexicons. Most such lexicons are
compiled as lists of words, rather than word meanings ("senses").
However, many words have both subjective and objective senses as well
as senses of different polarities, which is a major source of
ambiguity in subjectivity and sentiment analysis. The proposed work
addresses this gap, by investigating novel methods for subjectivity
sense labeling, and exploiting the results in sense-aware subjectivity
and sentiment analysis. To achieve these goals, three research
objectives are targeted. The first is developing methods for assigning
subjectivity labels to word senses in a taxonomy. The second is
developing contextual subjectivity disambiguation techniques to
effectively make use of the word sense subjectivity annotations. The
third is applying these techniques to multiple languages, including
languages with fewer resources than English. The project will have
broader impacts in both research and education. First, it will make
subjectivity and sentiment resources and tools more widely available,
in multiple languages, to the research community, which will help
advance the state of the art in automatic subjectivity analysis, which
in turn will benefit end applications. Second, several educational
goals will be pursued: training graduate and undergraduate students in
computational linguistics; augmenting artificial intelligence courses
with projects based on the proposed research, which will offer
students hands-on experience with natural language processing
research; and reaching out to women and minorities to increase their
exposure to text processing technologies and access to research
opportunities.